Deformation and Stress Models for 1999 Hector Mine Earthquake, California

Jackson 0001240

The investigators plan to collect and process new GPS data at about 35 previously observed sites in the epicentral region of the 1999 Hector Mine earthquake in southern California. The purpose is to extend the time series at each site with two additional measurements over one year. These data will be important for detecting and modeling afterslip on the Hector Mine fault and viscoelastic stress relaxation in the lower crust resulting from the earthquake. These data would supplement the continuous GPS data collected at five sites and several INSAR scenes observed after the earthquake. The new GPS data will improve the geographical coverage dramatically beyond that offered by the permanent GPS, and will offer higher precision than can be assured by the InSAR.